Dissertation Research: The Adaptive Significance of Andromonoecy in Zigadenus (Liliaceae)

Research on the ecological factors favouring andromonoecy in Zigadenus lilies (Liliaceae) is proposed. Andromonoecy is an uncommon type of plant breeding system that has received little attention and whose adaptive significance is poorly understood. Individual plants of andromonoecious species possess both male and hermaphrodite flowers, so it is necessary to explain (1) why female function has been eliminated in some flowers, and (2) why male flowers have been retained. These are questions of how resources should be allocated to, and packaged within, male and female reproductive structures. Thus, crucial to an understanding of the system is precise knowledge of how male and female fitnesses increase with increased allocation to each sexual function, particularly with increases in flower number. To determine the shapes of these fitness gain curves a combination of experimental manipulations of flower number, nutrient supplementations, pollinator observations, fluorescent dyes to track pollen movement, and genetic markers for determining paternity will be used. This will be one of the first studies to test predictions about the adaptive significance of a plant breeding system by measuring male and female gain curves in a natural population.